INTERACTIONS

The Santa Barbara Museum of Natural History is developing an innovative exhibit and teaching laboratory called INTERACTIONS. The unique feature of INTERACTIONS is the combination of an exploratory, interactive natural science exhibit with an adjacent live-insect-rearing laboratory. The exhibits will give the visitors some of the exploratory tools and experiences of the scientist and involve them in the process of scientific discovery. The laboratory will provide visitors with direct experience with scientists and involve them in the scientific process. Ecological in scope, INTERACTIONS will communicate environmental issues. The museum's plant and insect halls, designed over thirty years ago, will be renovated totally. In their place, a single, large exhibit and teaching laboratory will be created focusing on the interactions of insects and plants. The exhibits, videos, computer stations, and adjacent insect rearing laboratory will invite visitors to participate, question and examine. This combination of exhibits, hands-on activities, video, and laboratory will increase the retention of information, stimulate interests in natural science, and give vitality to the museum experience. The total cost of renovation, modernizing, exhibit construction and installation is $1,340,000 with $1,000,000 raised by a vigorous capital campaign. This request is for the balance of $340,000 to complete the exhibit construction.